CC* Compute: SIUE Campus Cluster

The goal of this project is to enhance high performance computing resources at Southern Illinois University Edwardsville to support a variety of research and education activities. Specifically, current campus facilities do not provide sufficient GPU or storage resources needed to enable work with large data sets. Additionally, SIUE campus IT staff participation increases experience supporting cyberinfrastructure resources to better support faculty, students, and collaborators.

This hardware directly supports ongoing projects and teaching activities which include: the use of machine learning models to predict complex phenotypic traits, development of high order accurate numerical methods for problems governed by hyperbolic partial differential equations, understanding the mechanism behind the quantum phenomenon in chemical reactions, drug interactions, and cybersecurity. Additional activities include faculty outreach in incorporation of high-performance computing into classroom exercises and curriculum.

Commitment to sharing this computing environment through the Open Science Grid (OSG) and other collaborative efforts increases awareness and adoption of other shared resources by the SIUE community.